Collider Physics

This award covers experimental Elementary Particle Physics Research by a group at Vanderbilt University in collaboration with other NSF and DOE supported scientists. The group will continue studying polarized e+e- interactions as members of the Stanford Large Detector (SLD) collaboration at the Stanford Linear Collider (SLC). They are also actively planning experiments and building prototype detectors for experimentation with the GEM collaboration at the Superconducting Super Collider (SSC).